Faculty Enhancement Workshop in NMR Spectroscopy

9354001 Traficante NMR Concepts will hold three workshops that will improve the ability of faculty to conduct research and to teach NMR courses to undergraduates. Each workshop will be 10 days in length, and will consist of NMR lectures, laboratory and problem solving sessions, keynote speakers, and round table discussions to aid the faculty in incorporating the new knowledge into their research efforts and into their courses. The first workshop will focus on the physics of NMR experiments, and how raw data is received and processed. The second workshop deals with the interpretation of one dimensional information received from the instrument, with emphasis on chemical applications. The last workshop covers the most advanced two-dimensional experiments that are presently being used to solve current chemical problems in industry and in academia. An annual reunion will be held for participants in these workshops to exchange successes, failures, and ideas for improving the implementation of these NMR methods into the undergraduate curriculum. ***